Status, Solidarity and Non-Verbal Communications

9319897 LaFrance ABSTRACT The human smile is an ubiquitous yet indeterminate facial gesture. People smile at each other when the situation is pleasurable, but they also smile when the context is painful, tense, or even antagonistic. Smiles appear to possess a number of meanings and seem designed to effect a variety of social purposes, such as showing good will, affirming social connections, conveying concession or apology, or enacting social position. This research employs multiple methodologies to determine how the diverse meanings of smiles are achieved, including meta-analysis, experimental studies, and content analysis of existing verbal records. Two processes are proposed to be involved in differentiating smiles: their physical qualities and the interaction context in which they occur. The research will investigate particular facial features, in addition to upward turning of the corners of the mouth area, that may differentiate smiling expressions associated with affiliation from those associated with appeasement. It will also investigate temporal qualities of smiles, such as time to onset, duration, and offset, that may differentiate smiling expressions associated with affiliation from those associated with deference or dissension. Finally, it will determine whether the differentiation among smiles is also a function of the degree of reciprocity of smiling between people who are interacting with one another. Prior research on smiling has focused primarily on its relationship to experienced emotion, neglecting the social functions of a smile. Yet, this apparently small social gesture contributes to and alters the nature of many social interactions. This research will make an important contribution to our understanding of these effects and thus to our ability to improve interpersonal communication in situations where smiles may be misread. A prime example is the examination of gender differences in smiling in the present research, which will test the generality of the observation that women smile more than men as well as various explanations for this difference, including women's higher affiliation motives or lower social power. ***